Some problems in derived algebraic geometry

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

The PI proposes to apply general categorical methods to concrete problems in algebraic geometry. In particular the PI suggests a categorical notion of resolution of singularities. This homological approach is a way to unite the usual commutative algebraic geometry with the noncommutative one. The PI also proposes to investigate the basic problem in the theory of triangulated categories: the existence and uniqueness of enhancements.

The PI suggests to apply powerful abstract methods to study concrete problems in modern geometry and mathematical physics. In particular an abstract notion of a resolution of singularities ("smoothing" of the space) is proposed.